Collaborative Research: Analysis of Three Records of the Cobb Mountain Subchronozone

This is a collaborative project between Clement (Texas A&M) and Martinson (Columbia). Preliminary results of Paleomagnetic studies of sediments from ODP Sites 646 and 647 in the northwest Atlantic indicate that these high sedimentation rate sections contain detailed records of the Cobb Mountain Subchronozone. Continuous sampling by Clement of the sediment from DSDP Hole 609B has already yielded a very detailed record of this short, normal polarity interval. The PIs will sample the sediment from Holes 646 and 647 in more detail and conduct a thorough paleomagnetic and rock magnetic study of these samples in an attempt to replicate the record obtained from Hole 609B. They will quantitatively correlate the resultant vector time series components from each site to one another using the objectives, nonlinear method of martinson. This will establish a statistical foundation rom which to evaluate the degree to which similarities exist in the records. This information will be used to examine the fidelity of deep-sea sediments as high resolution field recorders and the extent to which the differences in the records may be explained as site dependent field behavior.